Establishing Clemson University as a Research Site for CELDi

This action establishes Clemson University as a Research Site of the existing multi-university Industry/University Cooperative Research Center for Engineering Logistics and Distribution (CELDi). Management of logistics has become the key to success of many companies. Research in logistics is necessary to help companies gain a competitive advantage. The Clemson University research site will augment the existing research agenda with; a study comparing a logistic business model with a Maintenance Program Management plan, a study of the optimization of electric generating unit scheduling options and will study how to improve the forecasting and inventory management process in a publication company.